Mathematical Physics

Collaborative studies of various topics in mathematical physics will be made. In particular, the connection, first pointed out by Whitten, between topological invariants in different geometries and quantum gauge fields will be explored, with the hope of obtaining information on the behavior of the fields. The structure of correlations in gauge fields and other systems will be investigated.